Connection to INTERNET

9313609 Fletes This project connects State Technical Institute at Memphis to NSFNET through SURANET over a 56 kbps line. Faculty and students will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for one year. ***